Gordon Research Conference on Colloidal, Macromolecular and Polyelectrolyte Solutions

CBET-0813637, Gulari

The Gordon Research Conference (GRC) on Colloidal, Macromolecular and Polyelectrolyte Solutions will be held at the Four Points Sheraton in Ventura, California, February 3-8, 2008. The conference is organized to showcase some of the most interesting and revolutionary advances in the field of colloids and macromolecular solutions. The program assembles nationally and internationally recognized diverse group of research leaders, 20 speakers from USA and 6 international speakers, on experimental and theoretical aspects of colloidal, macromolecular and polyelectrolyte solutions. The format of the Gordon Research Conferences allows participants ample opportunities for exchanging ideas and networking. This format has significantly contributed to the success of new researchers in a given field. The NSF funds are requested to support the conference fees for the participation of graduate students and postdoctoral research associates.